Conference: Singularities in Topology and Physics

This award provides travel support for participants in the international conference "Singularities in Topology and Physics" to be held at the University of Notre Dame, Indiana, during August 3-7, 2026. This will be a satellite event of the 2026 International Congress of Mathematicians. The conference is designed to highlight the many ways singularities arise in topology, geometry, and mathematical physics and will bring together researchers who approach singularities from complementary perspectives. Alongside presentations of current research, the meeting aims to initiate conversations among diverse research groups and to seed new collaborations. The event will give junior researchers, postdoctoral scholars, and graduate students exposure to a broad range of ideas and will provide them with an opportunity to build connections among each other and with senior experts.

Driven by recent fundamental advances, the program will focus on the following themes: (1) codimension-two embedding theory; (2) characteristic classes of singular varieties; (3) singularities in mathematical physics; and (4) stratified spaces in computational topology. These topics span a wide range of research areas, from pure mathematics to more applied domains, and the participant base will reflect this breadth. In recent decades, the foundational tools used to study singular spaces have expanded across numerous areas of mathematics, making it increasingly important to create opportunities such as this conference for interaction among researchers working in these related but distinct specializations.

Additional details about the program can be found at:
https://people.math.wisc.edu/~lmaxim/SingTopPhy.html